To Train Prospective Master Teachers in Middle School Mathe-matics Using a Problem Solving Format

This Leadership Activities project will provide enhancement and professional development experiences for 30 exemplary middle school mathematics teachers from the Houston, Texas area. The overall goals of the multiyear project involve the updating and deepening of the participants' mathematical backgrounds and teaching methodology, the networking of the participants, the conduct of in-service workshops by the participants in their home schools, the dissemination of the project materials and results to nearby school systems, and the investigation of the modelistic approach within a carefully planned documentation, assessment and evaluation effort. Working under the assumption that leadership potential involves special characteristics, the project team and Advisory Board, which consists of representatives for 10 cooperating school districts, will engage in a thorough selection process. Documentation of the individual participant's entering characteristics and the competencies developed through project activities will contribute to the overall project evaluation. Participants will complete four special mathematics courses designed to encompass the CUPM recommendations for junior high school teachers, earning 12 graduate semester credits for the University of Houston. They will study with university faculty chosen for their excellence in teaching teachers. Mathematics studies will include ideas from mathematical problem solving, probability and statistics, history of mathematics, abstract algebra, number theory, and geometry. Participants will also complete 15 graduate semester hours of studies related to the pedagogy of middle school mathematics. Uses of microcomputers, diagnosis and remediation, and problem-solving strategies will be featured. During the in-service workshops which the participants will design and conduct, project staff will be available for consultation and support. Participants will be visited, observed, and videotaped in their classrooms and in their workshops with their peers. Careful documentation and analysis of these observations and recordings will provide a significant basis for a detailed project evaluation.